Mathematical Sciences: Algebraic Topology Conference dedicated to the Anniversary of Eduard Cech's 100th birthday, Boston, Massachusetts

9302027 Cenkl A conference in algebraic topology will be held at Northeastern University, Boston, Massachusetts, June 22-27, 1993. The main focus will be on modern homotopy theory. The conference will be accessible to graduate students and other young scientists in this field. Members of traditionally underrepresented groups will be encouraged to attend. It will represent an important opportunity for all to meet with the leaders in the subject. The main topics will be two areas which have experienced spectacular growth over the past few years: the chromatic perspective on stable homotopy theory (the telescope conjecture, Picard groups, axiomatics of structured ring spectra), and unstable homotopy theory (localizations, finite loop spaces, loop spaces of finite complexes, algebraic homotopy theory). Topology concerns itself with aspects of geometric spaces and structures which remain unchanged by continuous transformations. Dimension, connectedness (being all in one piece), the properties of being knotted or linked, and many more, all are subjects of topological study, for they are preserved so long as cutting or tearing are not permitted despite quite drastic alteration of shape and size. It is clear that these are fundamental and significant properties but that their study requires different tools from those of ordinary analytic geometry to make them manageable and a subject for calculation. Algebraic topology is devoted to developing, understanding, and applying these tools, and homotopy is one of the most powerful and complex tools in the arsenal. ***